US-Sweden Cooperative Research: Mathematical Studies of Dopamine and Microdialysis

This award will support collaborative research between Dr. Joseph Justice, Emory University, and Dr. Urban Ungerstadt, Department of Pharmacology, Karolinska Institute, Stockholm, Sweden. The objective of the research is to investigate dopamine neurochemistry and to better characterize microdialysis, a new method of monitoring the chemistry of dopamine and other neuro-transmitters, metabolites and related compounds. The two laboratories cooperating in this project are the leading ones involved in the rapidly emerging technique of in vivo dialysis. This technique has already been shown to be useful to examine the chemical composition of the extracellular fluid of the brain. The proposed research will continue the investigation of the effect of dialysis on the surrounding tissue, investigate ways to relate the chemical information obtained to the synaptic region, and specifically examine the role of uptake of catechola- mines in dopaminergic neurons. The project will involve mathema- tical modeling of the dopaminergic nerve terminal. New data from the two laboratories will be incorporated into the model. Uptake and inhibition of uptake will be a particular focus of effort. In addition, the microdialysis sampling methodology in use in both laboratories to study dopamine will be characterized. The charac- terization will consist of a mathematical analysis of the diffusion profiles created during sampling of the extracellular fluid. This will provide important new information about a technique that is being increasingly used in many laboratories in the United States and Europe.